Berea College: Undergraduate Institutional Participation in SSR-RC

Two related projects are designed to advance the robotic tools and techniques for effective subterranean rescue while providing a quality research experience for undergraduates at Berea College. The students will work in interdisciplinary cooperative learning groups with the research teams at the Industry/University Cooperative Research Center for Safety, Security and Rescue.

The students will also develop, analyze and simulate algorithms for dispersing a collective team of Scout robots in an unknown environment using non-centrally controlled solutions.